US-Korea: Planning Visit to Add an International Experience to REU Site in Automotive Manufacturing Systems

OISE-0751555 (Valenzuela, J.F. - Auburn University)
"U.S.-Korea: Planning Visit to Add an International REU Site in Automotive Manufacturing Systems"

This award supports a U.S.-Korea planning visit to discuss critical issues related to automotive manufacturing systems and to the establishment of an international REU in conjunction with the REU Site: Automotive Manufacturing Systems at Auburn University. The specific automotive manufacturing systems research areas to be explored include operations research, computer simulations, occupational safety, ergonomics, quality control, scheduling, reliability, engineering economics, and supply chain management. The Korean collaborator is Dr. Woon-Seek Lee, a Professor in the Department of Systems Management and Engineering at the Pukyong National University (PKNU) in Busan, Korea.